International Research Fellow Awards: A Mid-Infrared Investigation of Mass Loss from Evolved Stars at High Spatial Resolution

9703665 Sloan The International Research Fellow Awards Program enables U.S. scientists and engineers to conduct three to twenty four months of research abroad. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award will support an eighteen-month postdoctoral research visit by Dr. Gregory C. Sloan to work with Dr. Craig Hamilton Smith at University College at the University of New South Wales in Canberra, Australia. Twelve months of this research will be supported by the International Research Fellow Awards Program, and six months will be supported by the U.S.-Australia Program. Drs. Sloan and Smith will study late stages of stellar evolution using a combination of high-resolution imaging, long-slit spectroscopy, and polarimetry in the thermal infrared. As stars die, they shed most of their mass back into the interstellar medium as they evolve into planetary nebulae and supernovae. As this material moves away, it cools, allowing dust grains to condense out. This circumstellar dust represents the connection between one generation of stars and the next. Increasing our knowledge of the life- cycle of circumstellar and interstellar dust is critical to understanding how planets form around other stars, and even how life itself might form. Sloan and Miller will observe several evolved sources using direct imaging, long-slit spectroscopy, polarimetric imaging and spectropolarimetry. Results of this research will be high-quality images and spatially resolved spectra of the dust around several extended and evolved stars, from which they will be able to determine the geometry and chemistry of the mass-loss process. The polarimetric imaging and spectropolarimetry will provide information about magnetic field strengths and distributions which can be compared with theory to assess the importance of magnetic fields in regulating the dust forma tion process. One of the instruments they will use, Smith's NIMPOL Imaging Polarimeter is the only instrument of its type in the world. ***